Non-Steady Impingement of Submerged Jets: Heat Transfer

ABSTRACT CTS-9301287 Robert H. Page A new concept to utilize the non-steady impinging jet from a self oscillating nozzle is proposed. Enhancing the surface heat transfer due to a submerged jet impingement is to be studied theoretically and experimentally. The concept centers around the potential of modifying standard in-line jet nozzles such that they become self oscillating and have the ability to force an oscillating boundary layer development on the impingement surface. It is believed that this agitated surface boundary layer occurrence can be exploited to increase the heat transfer from an impinging jet. The Infrared Heat Transfer Jet Impingement Facility (HJIF) at Texas A&M University will be used for the experimental studies of the impingement. The objective will be to obtain a better understanding of this non-steady phenomena in order that it can be applied to this physical situation to improve the heat transfer as well as to gain the necessary enlightenment about self oscillating or resonant flows, such that the knowledge may have future use for additional surface boundary layer interaction conditions involving mass transfer and chemical reactions.